International Symposium on Advances in Metal-Containing Polymeric Materials, August 21-26, 1994, Washington, D.C.

9416788 This grant will provide partial support for the attendance of about eight scientists from the former Soviet Union (FSU) at the symposium on Metal-Containing Polymeric Materials to be held at the national meeting of the American Chemical Society, in Washington, DC, on 21-26 August 1994. %%% It is part of our general effort to encourage cooperation with FSU scientists and follows previous funding of a joint US-FSU workshop on polymeric materials.